Acquisition of a CCD X-ray Diffractometer for Chemical Crystallography Research and Education

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Cincinnati will acquire an X-ray diffractometer with CCD detector for small molecule diffractometry. This equipment will enhance research in a number of areas including the following: a) the study of reactive intermediates in crystals; b) design of novel complexes as photodynamic therapeutic agents in the treatment of cancers; c) the study of unusual covalent and hydrogen-bonded geometries of promising catalysts and composite structures; d) the study of host-guest chemistry and molecular recognition; e) investigations on polymorphism and its role in drug interaction and design; and f) the design of supramolecular solids that can function as molecular machines, magnets and coordination polymers .

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules. These studies will have an impact in a number of areas, including the preparation of more efficient catalysts, drug development, and materials sciences.